Optical Dephasing of Ions in Solids and Studies of Phonon Dynamics

This research has the purpose of obtaining new information on the dynamics of high frequency phonons using powerful far infrared phonon generation techniques coupled with sensitive and tunable optical detection methods. A second project involves the study of optical dephasing and spectral diffusion using a variety of techniques probing a wide range of time scales. Far infrared defect-induced one-phonon absorption permits generation of a tunable monoenergetic phonon distribution, which when combined with tunable detection employing vibronic sideband phonon spectroscopy, will permit truly time-resolved phonon spectroscopy. This spectroscopy will be used to study anharmonic phonon-phonon interactions responsible for phonon breakup and phonon recombination. The optical dephasing studies will utilize methods in both the time and frequency domain. Of special interest are the effects of different time scales for the determination of homogeneous line width. These results will be analyzed with stochastic models for the dephasing due to electron spin-spin and electron-nuclear spin interactions. Computer simulations will also be developed.